Melting below Mid-Ocean Ridges

The narrowness of the neovolcanic zone at MORs and the variations in ridge crest topography are poorly understood. It is generally agreed that pressure-release melting at depths between 20 and 100 km occurs beneath ridge crests and that the melt is segregated from the mantle and rises because of density differences to form the ocean crust. Recently acquired seismic data suggest that the zone of upwelling beneath ridges is much narrower than theoretical models predict. The observed topographic highs at fast-spreading ridges and the lows at slow-spreading ridges are also not predicted by the models. The PI has developed a new model wherein mantle viscosity is temperature dependent and is coupled to the fraction of melt present. This produces a narrow upwelling zone in better agreement with observations. He proposes to run through a large number of calculations to determine the range of conditions that produce narrow upwelling and melting below the ridge, looking in particular at the effects of varying the permeability, and how the model affects topography.